Travel to Attend: 10th International Seminar on Modal Analysis; Leuven, Belgium; September 30 - October 4, 1985

This award provides travel support for a senior investigator to participate in a major international meeting, a Seminar on Modal Analysis sponsored by Katholieke University in Leuven, Belgium. He has been invited to present two papers on parameter estimation.